Mathematical Sciences: International Biometric Conference

Billard The proposal requests support for fifteen U.S-based individuals from academic and nonprofit institutions to participate in the International Biometric Conference to be held in Amsterdam Netherlands on July 1-5, 1996. This is the biennial meeting of the International Biometric Society. About one-third of those supported will be those with an official capacity and two-thirds will be new researchers, especially those traditionally underrepresented groups such as women and minorities. Availability of awards will be advertised in publications of the ASA, the IMS and the Biometric Society. Awardees will be selected by an Awards Selection Committee.